Recovery for Service-Oriented Applications

IIS-0533625
Betty Salzberg <[email]>
Northeastern University

Recovery for Service-Oriented Applications

The goal of this research project is to provide application recovery
in a realistic setting. The server software, called an SOA, or
Service-Oriented Application, is realized as a process and provides
its service through an interface consisting of application methods. A
client, either an end client application or another SOA, uses the SOA
service via remote procedure call to application methods. Many
mission-critical electronic business application servers fit this
model.

The recovery model is tiered. The innermost tier consists of shared
memory (application variables shared by the different threads of the
server process). The middle tier, called a service domain, consists of
tightly-coupled SOAS. Optimistic logging is used within the service
domain. Optimistic logging does not write log records to disk before
sending messages and is thus low-overhead. Communication outside the
service domain uses pessimistic logging, where log records are written
to disk before messages are sent. Special result logging is used to
communicate with transactional systems such as DBMSs.

The results of this research will help provide availability for
applications which use web services. Since many mission-critical
electronic business application servers fit this model, the greatest
impact of this research will be in increasing availability for those
servers and hence for the applications which depend on them. In
addition, the project will be used in training of Computer Science
Ph.D. students, currently a national priority. The code and
manuscripts for this project will be disseminated via the project web
site http://www.ccs.neu.edu/home/salzberg/soa/